NUE: NanoCORE (Nanotechnology Concepts, Opportunities, Research and Education) at the FAMU-FSU College of Engineering

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled "NUE: NanoCORE (Nanotechnology Concepts, Opportunities, Research and Education)at the Florida A&M University (FAMU)-Florida State University (FSU) College of Engineering", under the direction of Dr. Ongi Englander, is designed to introduce aspects of nanoscale science and engineering into the core undergraduate curriculum beginning in the freshman year. The NanoCORE program will infuse and integrate nanoscale science and engineering (NSE) as a permanent component of the undergraduate curriculum, present multiple opportunities for undergraduate learning of concepts in NSE and create opportunities for undergraduates to pursue nanotechnology related research activities.